Dynamics and Thermodynamics of Polymers

Theoretical investigations will be done on relaxation of polymer chains and liquid crystals in random environments, and on the time evolution of morphologies in polymer blends and solutions with liquid crystals. The full mathematical expressions will be derived to describe the nonuniversal features of (a) dynamics of polymer chains trapped in gels and controlled pore glasses; (b) phase separation kinetics leading to controlled pattern formation in polymer blends; and, (c) formation of polymer-dispersed-liquid- crystal morphologies by phase separation kinetics and the relaxation of liquid crystalline domains in these morphologies. The theoretical work complements many experimental investigations which are being actively pursued in many laboratories worldwide. The results of the proposed work are also relevant to the technologically important areas of separation techniques such as chromatography, preparation and processing of molecular composites, and switchable windows and light shutters for optical processing. %%% This theoretical work in polymer science will use analytical and computational techniques to address a number of problems of current fundamental and applied interest. Primary focus will be on the behavior of polymer chains and liquid crystals in disordered environments and on the patterns formed when polymer mixtures are combined with liquid crystals.